Real-Time Distributed Production Control Methods Based on Continuous Flow Models

The objective of this research is to develop a high performance computationally efficient method for real-time production control of complex manufacturing systems. Attention will be focused on distributed production control methods that are "guided" by the solution of a continuous flow (fluid) approximation of the production system. The continuous flow model will incorporate important production control decisions such as part release, routing, and machine scheduling, and will provide part release and operation-specific production targets for the system over a sufficiently long time. These targets will guide the actual discrete production control decisions via simple distributed (local) feedback policies implemented at each machine. The vast reduction in computational complexity of the production control problem achieved by the continuous flow approximation allows the computation (and updating) of the continuous production targets in real time. The actual distributed control decisions require very little computation. Thus the approach is expected to provide a viable real-time production control method.